Research in Elementary Particle Theory

9306524 Goldberg Research in theoretical elementary particle physics will include study of mechanisms for producing anomalously large numbers of certain particles in collisions at high energies. These particles are carriers of the weak nuclear force. A second related project consists of the analysis of a new model for the generation of matter, as opposed to anti-matter, in the early universe. The research plays a key role in the understanding of the present structure of our universe, and the elucidation of its origin constitutes a major opportunity to enlarge our knowledge in both theoretical elementary particle physics and cosmology. ***